NOX Reduction Properties of Chromia-doped Tin Oxide and Pla-tinized, Chromia-doped Tin Oxide

This study attempts to elucidate the properties of chromia-doped tin oxide before and after platinization by probing electronic structure, composition, and geometrical structure using x-ray photoelectron spectroscopy, Auger electron spectroscopy, electron stimulated desorption, and ultraviolet photoelectron spectroscopy. Recent work on chromia-doped tin oxide shows that this material holds promise for treatment of nitrogen oxides. These experiments involve ;itin situ;ro dynamic measurements, the most promising technique for modern catalyst studies. An improved system has been developed for use of an established analytical technique known as Auger spectroscopy. The new system allows more meaningful results than have been possible in the past from this technique which determines kind and amount of compounds present on surfaces. The improved method also allows more sensitive surfaces, not hitherto susceptible to the Auger method, to be analyzed.